Doctoral Dissertation Research: Making the Case: The Evolution of the Psychiatric Case Study in Modern France

This dissertation project focuses on the case study used by late nineteenth century psychiatry. Although historians have studied the emergence of the case study as a technique of medical observation, they have had nothing to say about its subsequent evolution as a narrative form, This project argues that a study of the case must begin with its narrative elements, with the content of the form. The project asserts that in addition to becoming a more formalized document over the course of the century, the case study in psychiatric medicine evolved from being a story about the progression of a particular disease-entity in a person to being a story about the individual himself. The project seeks to address the ways institutional, or discursive, `memories` affect the personal memory of `pathological` mental states and the internalization of `abnormal` identities in individuals. By focusing in the latter part of the study on the medical discourses about, and case studies of, men who were described as `inverts` or `homosexuals` around the moment when those classifications came into being, the project uses the emergence of homosexuality in the late nineteenth century as a case study of the deployment of the technique itself. The project not only contributes to current debates regarding the social construction and emergence of the `homosexual,` nor simply describes the evolution of a particular scientific genre in France, but also addresses much broader theoretical issues in the history and philosophy of science that cut across temporal, national, and disciplinary boundaries: the relationship of discourses to people, and the relationships among specificity (cases), comparison, and knowledge.